Travel Support for the AMS Workshop and 13th Conference on Probability and Statistics in the Atmospheric Sciences; San Francisco, California

9628483 Hallgren This award provides travel support for graduate students, post-doctoral scholars, and invited speakers who will participate in a special workshop on computer intensive statistical techniques and their application to the atmospheric sciences. The workshop will be held just prior to the American Meteorological Society's 13th Conference on Probability and Statistics in San Francisco in February 1996. The workshop has two goals: (1) to improve and promote stronger interaction between the statistics and atmospheric sciences communities and (2) to introduce graduate students and postdoctoral scholars both to the latest statistical concepts relevant to the atmospheric sciences and to the statisticians responsible for those developments. The workshop papers and discussions will be published in a monograph that will be widely distributed. Support for this award will be shared between the programs in the Lower Atmospheric Research Section of the Division of Atmospheric Sciences and the Statistics and Probability Program of the Division of Mathematical Sciences.